Microsatellite DNA Analysis of Parentage

9420297 Brown, Jerram Abstract Students of natural selection do not agree on the way in which selection has determined the natural mating preferences of wild animals. For example, it is unclear which male qualities are preferred by females and why. Do they prefer males who will feed their young; or males whose genes will cause the offspring to be more vigorous and competitive, or both? A prerequisite for studying this problem in nature is an accurate means of identification of fathers. The P.I. is employing new technology, namely DNA microsatellites, for this purpose. With accurate information about actual genetic fathers the P.I. will then characterize them according to their role in feeding young, their dominance rank and other individual qualities that might be correlated with competitiveness in their offspring. The P.I. s studies will be among the first to provide accurate information on the qualities of males actually chosen by females in a complex avian social system in which female choices are not constrained by a system in which territories are owned exclusively by pairs.